The Introduction of FT-IR into the Undergraduate Chemistry Curriculum

The Department of Chemistry and Physics is purchasing an FT-IR for use in all chemistry courses from the freshman level through senior independent research. The instrument is being used for product characterization, determination of the extent of a reaction, study of reaction mechanisms, and equilibrium bond distances and force constants.